Presidential Young Investigator Award: Research in Design Automation

This research outlines a formal and unifying theory concerning (i) the process of design, namely that it can be succinctly and simply defined to be a model of computability, (ii) the artifacts of design as enumerated strings from a formal design grammar, and (iii) the rules of design as formal state changes that govern the string enumeration. The artifacts of engineering design of discrete goods, as strings in a formal language, can be discussed in terms of solid modeling as the kernel of a boundary based modeling system, rooted in a language of topologically valid representations of rigid solids as connected, 2-manifolds. This 3D representation grammar includes (i) a set of face-based Euler operators as well as (ii) their semantics. Since inclusion of both elements provides necessary and sufficient conditions for solidity, one can prove topological validity of the representation scheme.